Collaborative Research: RUI: Multilinear Algebra Computations with Higher-Order Tensors

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Many real world applications need to compress, sort, and otherwise
manipulate large volumes of multidimensional data arrays (i.e., higher-
order tensors), so there is an increasing need for theoretical and
computational tools to deal with multiway data. The subject of
multilinear algebra and tensors has gained increasing prominence in
the past decade due to a surge in applications such as approximation
of Newton potentials and stochastic PDEs, image compression and
deblurring, network traffic analysis, biological assay interpretation,
unmixing of signals, and many more. Such applications with higher-order
tensors involve factorizations of the tensor. There are multiple
possible extensions of matrix factorizations to higher-order tensors
(e.g. extensions of the matrix SVD), with some more amenable to certain
applications. The investigators are advancing the state-of-the-art in
both theoretical and computational multilinear algebra via several newly
developed tensor constructions based on new notions of tensor
multiplication, orthogonality and diagonalizability. Algorithms with
compression schemes based on these new constructions are being
implemented by the investigators and tested on several datasets from
various applications including handwritten digit identification,
genomics, the spectral unmixing problem, video compression, and computer
image recognition.

Current applications in the sciences can involve
analysis, classification, searching and compression of large volumes of
data that is "multidimensional" in nature. Consider, for example, the
problem of facial recognition, used to identify a terrorist from within
a database of images of known terrorists. The database can be considered
multidimensional data in the sense that for each individual there
corresponds a specific viewpoint, illumination, and facial expression.
It is critical in this scenario to have an accurate and fast algorithm
to match an unknown image against a database of images of known
terrorists. Another example where a multidimensional representation is
useful is genomic data. Here, DNA microarray two-dimensional tabular
data from different experiments is concatenated into a multidimensional
array. Recently published results have indicated that so-called
'factorizations' of this multidimensional data can be used to discover
new molecular-level interactions. Hence, along with advances in
computer architecture to store large datasets must come mathematically
sound models for the compression and/or analysis of such data.
Development of new concepts and ideas is therefore required to deal with
the different geometries that arise in the multidimensional case. The
investigators are contributing directly to this effort by developing
innovative mathematical theory for multidimensional objects that is
consistent with two-dimensional proven ideas. With theoretical
constructs in place, the investigators are able to create computational
tools and algorithms to analyze and compress multidimensional data. A
significant component of the proposal is the involvement of
undergraduates, graduate students, and researchers. The investigators
are leveraging the strengths of both universities in a novel,
inter-institutional vertical integrative experience for all students
(undergraduate and graduate) involved in the research. This arrangement
allows students at all levels, mentored by leading researchers in the
field, to advance the state-of-the-art in the analysis and compression
of multidimensional data.